Collapsing, pinching, and curvature bounds

Abstract

Award: DMS-0503864
Principal Investigator: Igor Belegradek

This project is concerned with the topology of curved Riemannian
manifolds. One objective is to study collapsed manifolds, i.e.
manifolds that appear lower dimensional at a certain small but
definite scale. Specifically, it is planned to investigate almost
nonnegatively curved manifolds, collapsed manifolds of bounded
nonnegative curvature, and cusp cross-sections of finite volume
nonpositively curved manifolds. In a somewhat different direction
it is proposed to study negatively pinched manifolds, including
pinching estimates, rigidity in case of optimal pinching,
finiteness theorems forced by assumptions on pinching, asymptotic
geometry of horospheres, and negatively pinched groups. The
project continues earlier work of Belegradek and collaborators,
and especially the recent results with Kapovitch on
diffeomorphism classification of negatively pinched manifolds
with amenable fundamental groups (that settled a problem of
Bowditch), and on optimal pinching estimates for such manifolds
(that answered a question of Gromov).

While the project mostly deals with intrinsic development of
global Riemannian geometry, it is also to some extent motivated
by Sciences and Engineering, where curved spaces are plentiful
and occur naturally. The theoretical insights obtained in the
project may be applicable to concrete problems in those fields.